Engineering Risk Management: A Normative Probabilistic Approach in a Dynamic Environment

Management factors and organizational errors are major contributors to the risk of failure of large complex systems that often have severe health and environmental consequences. Environmental policy (both public and private) relies on risk management to forecast organizational and engineering performance as well as a means for reducing risks. Modeling in risk management, however, rarely accounts for robust interactions among human, engineering, and environmental systems. Social scientists and engineers tend to consider risk management differently and a bridge is needed between the two fields to take full advantage of the research of both. This research develops a normative risk management model (System-Actions- Management: SAM), involving both the technical parameters included in classical Probabilistic Risk Analysis (PRA) and the organizational factors that affect them. The research extends earlier work on the characterization of the linkage between classical PRA and management factors by emphasizing the long-term dynamics of organizations and facilities. The resulting model will allow a more realistic and balanced consideration of social and behavioral factors in risk management decision making and priority setting.